Precision Measurement of Parity Nonconservation in Trapped Radioactive Isotopes

Professor Wieman will use novel techniques of atomic optical cooling and trapping to measure parity nonconservation in radioactive isotopes of the alkali atoms, cesium and francium. The electron-quark neutral current coupling constants which are measured in atomic parity nonconservation are different from those probed in other precision electroweak measurements, this test is uniquely sensitivity to a variety of new physics which may exist beyond the standard model.